Curing of Low Shrinkage Unsaturated Polyester resins in Reactive Processing

Unsaturated polyester resins are widely used thermosets in polymeric composites because they offer a good balance of properties, are relatively inexpensive, and are amenable to most fabrication processes. With the aid of fillers, reinforcements and additives, they are usually available in the form of compounds for: (1) compression molding (sheet molding compound, SMC), (2) injection molding (bulk molding compound, BMC), (3) resin transfer molding (RTM), and (4) pultrusion. Their uses are in the automotive, housing, marine, and electric/electronics industries (for example, SMC is widely used for auto body exteriors). Unsaturated polyester resins are a mixture of saturated and unsaturated dicarboxylic acids with glycols. Due to high polymerization shrinkage during cure, structural and surface flaws results because as the polyester crosslinks with styrene it shrinks away from the mold walls. Many physical changes occur during polymerization including: (1) microgel formation at a very early stage of polymerization due to the high extent of intramolecular reaction; (2) macro-scale gelation where materials change from a viscous fluid to a network gel with chemical crosslinking; and (3) glass transition (i.e., vitrification) where the reacting mixture changes from a rubbery material to a glassy polymer at a later stage of polymerization. These changes occur during the course of reaction and may affect the ongoing chemical reaction. Additional problems with the process are due to the fact that the reaction has to approach complete conversion because the residual reactants can not be removed and may be defects in the molded product, and, in order to compete with thermoplastic manufacturing, reaction rate has to be very high to reduce the cycle time (on the order of seconds or minutes). The goal of this research are to increase understanding of the reaction mechanisms and molecular structure of unsaturated polyester resins, specifically (i) to understand the mechanism of microgel formation and macro-crosslinking in the chain growth crosslinking copolymerization of unsaturated polyester resins, (ii) to understand the effect of processing conditions, molecular structure of resins, type and concentration of initiator, and low profile additives on the reactions kinetics and morphological changes of low shrinkage unsaturated polyester resins, (iii) to propose a mechanistic curing model based on the true reaction mechanism of unsaturated polyester resins (i.e., an inhomogeneous chain growth crosslinking copolymerization), which can be used for the design of new materials and the optimization of processing methods, and (iv) to establish the interrelationship between the above mentioned results, cure time and surface finish of molded parts. Information resulting from this research will be used for solving the problems of poor surface quality of molded parts and too long a cycle time. This is an Industry/University Cooperative Research (IUCR) effort. Scientists from three companies will participate in the research program. The companies will also contribute materials and the use of some of their facilities.